Department of State, Diplomatic Security for the NSF/NSB Awards Dinner on May 13, 2009

This award is to be made to Department of State, Diplomatic Security Department, to pay for the secruity service for the Annual NSF/NSB Awards Dinner on Wednesday, May 13, 2009, from 6:30PM to 10:00PM.